NSF Nanoscale Science and Engineering (NSE) 2018 Grantees Conference, at Westin Alexandria Hotel, Alexandria, VA, on December 6-7, 2018

The NSF Nanoscale Science and Engineering (NSE) 2018 Grantees Conference is a two-day annual event that brings together nanoscale educators, researchers, and experimentalists from academia, government, and industry to highlight information on the research and education activities funded by NSF NSE grants. The primary goals are to promote dissemination of innovative research progress, to facilitate research partnerships, and to identify future research directions. Panel discussions will be moderated by NSF-funded researchers as well as NSF Program Directors. The conference helps advance the goals of the NSF and the U.S. National Nanotechnology Initiative. Conference materials are made available to the global audience following the event at the website www.nseresearch.org, along with archival information from previous events.

The NSE grantees conference will foster interaction among academic, government, and industry researchers in nanotechnology fields. Keynote presentations and interactive panel discussions on the grand challenges in and convergence of nanotechnology generate opportunities for creative interdisciplinary collaboration. Identification and exploration of future trends in nanotechnology and cyberinfrastructure enable researchers and industry to prepare to fully capitalize on next-generation capabilities. The first day of the conference will focus on Progress in Foundational Nanotechnology and Infrastructure. Topics will include nanoscale modeling and simulation, the use of big data in nanotechnology research, nanotechnological devices and systems, two-dimensional nano-materials, and quantum phenomena in nanoscale systems. The second day of the conference will focus on Progress in Grand Challenges and Convergence. Topics will include the convergence of nanotechnology with a variety of other fields including biotechnology, cognitive science, cyber and artificial intelligence fields, and brain-like cognitive engineering systems. The second day will also include discussions of education challenges and societal impacts of nanotechnology.